RUI: Formulation for Coupled Composition-Thermoelectromechanics in Polycrystalline Thin Film Structures

RUI: Formulation for Coupled Composition-Thermoelectromechanics in
Polycrystalline Thin Film Structures
Lori C. Bassman

The thin film metal lines that comprise microelectronic interconnects
experience large variations in thermal conditions. During
fabrication, processing steps at different temperatures result in
significant thermal stresses, and under operating conditions the heat
generated through Joule heating subjects the lines to elevated
temperatures. The focus of this project is to incorporate the effects
of spatially varying temperature, along with electrical conduction,
into a lattice-level model for the coupled composition and mechanics
of thin film polycrystalline materials. The ability to solve coupled
composition, mechanics, electrical, and thermal problems on a general
polycrystalline domain will provide opportunities for greater
understanding of the physical phenomena occurring in ever-smaller
interconnect structures. It also will enhance general capability to
study these phenomena in a variety of crystalline materials relevant
to the microelectronics industry. All facets of this project,
including expansion of the formulation, implementation in a finite
element code using specialized numerical methods, and validation of
the model with experimental studies from the literature, are to be
completed with substantial participation of undergraduate students at
Harvey Mudd College.